Photon and Electron Driven Processes at Adsorbate-Substrate Interfaces

9319640 White This research project is in the general area of Analytical and Surface Chemistry and in the subfield of surface dynamics. During the tenure of this three-year continuing grant, Professor White and his students will investigate the kinetics and dynamics of photon- and electron-driven processes in molecular adlayers. From the photon-driven processes, both photochemical and photophysical events, as well as the competition between them, will be investigated. Using low energy electrons, comparable bond breaking and energy transfer processes will be studied. The objective of the project is to increase our understanding of both the kinetics and dynamics that are operative in nonthermal systems at surfaces. %%% The primary objective of this research is to investigate the interactions of photons and electrons with molecules adsorbed on solid surfaces. Improved understanding of such systems is important to progress in many technologically important areas of research including catalysis, separations, and environmental chemistry. ***